International Symposium on Lattice Field Theory 1998; Boulder, CO

The International Symposium on Lattice Field Theory will be held in Boulder, Colorado, July 13-18, 1998. This Symposium belongs to a series of conferences which are the major international conferences focussing on large, difficult-to-treat phenomena in theoretical elementary particle physics, theoretical condensed matter physics, and applied mathematics. The Symposium will provide a forum for the fruitful exchange of ideas among experts who are concerned with very different problems, but who utilize common techniques.